Updates in Deductive Databases

This is the first-year funding of a three-year continuing award. The process of updating a view in a relational database usually requires the translation of an update into updates over the underlying base relations. This process can be complex since the translation may not be unique. A generalization of the view update problem in relational databases is equivalent to the update of an intensional relation in a deductive database in which only the extensional database can be modified. The aim of this research is to design and implement update algorithms for stratified normal deductive databases by incorporating disjunctions in the extensional part of the database. The algorithms consider single insertions, single deletions and transactions. A fundamental structure for the implementation of the algorithms are interpretation trees that are used to compute answers to queries in disjunctive deductive databases. The research also addresses the issue of integrity constraints in disjunctive databases. So far, constraint satisfaction in disjunctive databases has been relatively unexplored; nevertheless, it has been shown that there exists a strong connection between disjunctive databases with constraints and the stable model semantics for normal logic programs. Hence, the development of algorithms to check integrity constraints will indicate directions to define procedures to answer queries in normal logic programs under the stable model semantics.